Education and Training Program in Composite Materials for DoD and Durable Goods Industries

9412783 Hawley ABSTRACT Education and Training Program in Composite Materials for DoD and Durable Goods Industries Michigan State University (MSU) and the University of Delaware (UD) will develop new courseware and software to advance the dual-use potential of low-cost composite manufacturing. Education delivery mechanisms to be used include computer-based simulations and interactive learning, broadcasting of classes over satellite networks, and workshops on design and processing of composites. Resources available to the universities include the National Science Foundation's Center for Polymer Processing at MSU and the Center for Composite Materials at UD, sponsored by the Army Research Office. These centers are also supported by large industrial consortia, and have excellent research and manufacturing facilities. Industry involvement in this effort will include guest lectures and planning workshops. ***